Development of a Compact, Broad Range Magnetic Spectrometer for Ion Beam Analysis

9625960 Lanford This award is to develop a compact, broad range magnetic spectrometer to be used in ion beam analysis for materials research. This spectrometer is designed to be used as a detector for Rutherford backscattering (RBS) wihich will allow the measurement of RBS spectra with equal ease and precision as current systems, but with more than a factor of ten better energy resolution. This order of magnitude improvement in energy resolution translates into an order of magnitude improvement in the near surface depth and mass resolution of RBS. With this spectrometer, 4HeRBS will have mass resolution better than (i.e. smaller than) 1 amu for all target nuclei and will have a near surface depth resolution approaching atomic dimensions. One novel feature of this spectrometer is the ability to measure RBS spectra with a large solid angle centered at 180o where kinematic broadening is minimized (dE/d=0) for all target masses. An extended focal plane allows the simultaneous measurement of relative intensity of He+ and He++ ions in order to correct for charge fraction effects. Although designed with the needs of RBS as a primary concern, this spectrometer can also be sued as a detector in nuclear reaction analysis (NRA) and energy recoil detection (ERD), where the high energy resolution will again translate into dramatic improvement in the depth resolution attainable by these analytic methods. %%% This instrument is likely to provide substantially improved capability for materials analysis, and will provide training to students. He will provide important feedback for processing development and device fabrication. ***